Semistate Design Theory for Nonlinear Microelectronic Systems

This research stems from and continues work done under previous NSF grants. The main theme is development of semistate design theories for non-linear microelectronic circuits with special reference to applications, such as neural-type microsystems, and Kemp echo simulators for non-invasive determination of ear parameters. In this research the use of semistate equations for automated design with application to the above types of systems is being explored.